Investigation of the Peroxidase-Oxidase Oscillator: Theory and Experiment

9307549 Larter Raima Larter and Alexander Scheeline are supported by a grant from the Theoretical and Computational Chemistry Program to study the detailed chemical kinetics of the peroxidase-oxidase chemical oscillator. Free-radical behavior, photochemical effects, the role of co-factors, degradation of peroxidase during reaction, reactivity of NAD dimer produced as a reaction intermediate, and the consequences of acid-catalyzed anomerization of NADH will be studied. Two goals to be addressed are: 1) to sufficiently characterize the chemical dynamics so that realistic models for the reaction can be devised; and 2) to better understand the chemistry of the constiuent species. Measurement tools to be employed include oxidimetry, potentiometry, cyclic voltammetry, spectrophotometry, and electron paramagnetic resonance. %%% It has been suggested that chemical oscillations may provide the underlying rhythm for all types of biological oscillaitons which have been observed to occur at all levels of the metabolic process. Many of these oscillations have been explained in chemical terms. The peroxidase-oxidase reaction which is being studied by Larter and Scheeline is a very useful model reaction of the biochemical processes which might underlie rhythmic phenomena in living systems. One of the objectives of their research is to resolve the question whether it is the natural enzyme kinetics or the unnatural features of the in laboratory experiments which lead to the observed nonlinear dynamic behavior which are the source of the oscillations in this system. ***